Partial Melting of Pacific Rocks from the Aureole of the Laramie Anorthosite Complex

The PI proposes to study partial melting of pelitic rocks using natural samples of the Laramie Anorthosite. Goals are to: (1) constrain phase equilibria in pelitic rocks and determine melt compositions; (2) test the model of wall rock melting associated with the anorthosite intrusion; (3) evaluate contamination of the anorthosite magma by anatectic wells. Chemical analyses, petrologic studies, and experimental studies will be used to attain these goals.